Fast Processes in Protein Folding Dynamics Workshop: March 1992, Puerto Rico

Ralph Roskies and Michael Levine have organized a workshop on Fast Processes in Protein Folding Dynamics. Understanding how proteins fold is one of the central challenges in biology today. Only recently, with the advent of advanced computational methods, has it been possible to simulate the dynamics of protein folding. To apply theoretical and computational approaches in biology it is essential to link in experimentation; today, technical limitations lie in the way of interlinking theory, simulation, and experiment. The workshop will be structure to develop new approaches to central questions or challenges by bringing together scientists from different disciplines who would ordinarily not attend the same meeting, by developing seed questions in advance of the meeting to focus the discussion throughout the course of the meeting, by setting aside specific panel sessions following each major set of talks to allow open and extensive discussion of possibilities and difficulties. The meeting will help set a research agenda for a diverse community of scientist drawn from several disciplines.